CAREER: Novel Optimization Methods for Cooperative Data Mining with Healthcare and Biotechnology Applications

ABSTRACT
0546574
Wanpracha Chaovalitwongse
Rutgers University New Brunswick

CAREER: NOVEL OPTIMIZATION METHODS FOR COOPERATIVE DATA MINING WITH HEALTH-CARE AND BIOTECHNOLOGY APPLICATIONS

There is an urgent need to advance and apply quantitative and qualitative approaches to the study of
epilepsy and brain disorders. As uncontrolled epilepsy poses a significant burden to society due to as-
sociated healthcare cost, this project is aimed at the development of an automated seizure prediction
system and brain abnormal activity classifier. To achieve this goal, optimization-based data mining
(DM) approaches will be developed to quantitatively analyze the brain activity through electroen-
cephalogram (EEG) data. The proposed DM techniques will excavate hidden patterns/relationships
in EEGs, which will give a greater understanding of brain functions (as well as other complex sys-
tems) from a system perspective. Specifically, a new DM paradigm for the seizure prediction and
brain activity classification will be developed based on novel optimization-based DM techniques for
feature selection, clustering, and classification. The proposed research will contribute to the computer
science, engineering and medical communities along the following four lines: (1) the development of
novel mathematical models and optimization techniques for DM problems and time series analysis,
(2) the implementation of statistical techniques to detect patterns from selected features/clusters
for predicting seizures and classifying normal and epileptic EEG activity, (3) the utility of detection
theory and the experimental designs to assess and validate the efficacy, robustness, and uncertainty
of the proposed DM paradigm as well as fine-tune the optimal parameter setting, (4) the extension
of the fundamental research findings in optimization and DM to other cross-disciplinary research,
which will constitute a new avenue of research in optimization-based DM and time series analysis.
The proposed research is very crucial to decision making processes in real world problems. Success
of this research will advance the state-of-the-art in the field of optimization in DM, and have a
greatly significant impact on medical research. The research scope in this proposal touches upon
several emerging optimization and DM problems, which are driven by ever growing computational
power. The proposed research has shown a broad impact on many research fields including computer
science, operations research, computational biology, and logistics. The scope of this project itself
will broaden opportunities and enable the participation of all citizens women and men, underrep-
resented minorities, and especically persons disabled by epilepsy. Success of this proposal in seizure
prediction research will relieve the anguish from this life-threatening disease and improve the life
quality of at least 2 million Americans (14 millions worldwide), who are currently suffering from
epilepsy regardless of race, age, or gender.